Finitely presented groups at The City College of New York, Spring 2009 conference

How can you tell whether a knot is really knotted or
whether it is possible to find a formula for the
solutions of certain equations or how to make sense
of the nature of the elementary particles of physics
or why there are only 17 really different wall paper
patterns? These and many other such questions depend
on an algebraic structure called a group. Groups arise
in many parts of mathematics and in science. They provide,
in particular, the means to understand and exploit
symmetry. This makes it possible for them to help
in our understanding of the nature of the space we live
in, the structure of crystals and various molecules
and in the design of new cryptographic protocols. Indeed
the security of information transmitted electronically
over the internet depends crucially on a particular kind
of group called a finite group. This group provides a way
to encode messages using the product of two very large prime
numbers. The encoding is the easy part of the process.
The hard part is the decoding and this is where group theory
is used. The present proposal deals with the current state of
knowledge of certain groups, called finitely presented groups.
These finitely presented groups hold in many instances the keys
to solving important problems in mathematics and science
and the primary objective of this conference is for a number
of very prominent mathematicians to map out future directions
of study.